(Meeting Support) Astrophysical Turbulence Conference at the Institute for Theoretical Physics, University of California, Santa Barbara, May 8-12, 2000

Partial support is provided for a meeting to be held at the Institute for Theoretical Physics during May 2000. The focus of the workshop is on evaluating the prospects for advancements in the field of astrophysical turbulence. The talks are organized along several parallel themes:
1. Observational properties of astrophysical turbulence, from the Solar atmosphere to the interstellar environment.
2. Physics of turbulent processes, with special emphasis on nuclear burning fronts, magnetic reconnection, thermal conduction and radiative fluids.
3. Techniques for numerical modeling of turbulent flows.
4. Transport of angular momentum via turbulent flows.
5. Instabilities and boundary layer effects in turbulent flow regimes.
6. Magnetic dynamos

Funding for this project was provided by the NSF program for Stellar Astronomy & Astrophysics (AST/SAA).